Steward Observatory CCD Laboratory Facilities Upgrade

Abstract LESSER, M. P. AST-9618760 Funds will be used for the purchase and installation of facilities for the safe handling of hydrofluoric acid and photoresist used in the preparation of charge-coupled devices for astronomical imaging.